Partial Differential Equations and Geometric Analysis in Several Complex Variables

ABSTRACT

A basic problem in several complex variables is to understand
the interplay between the analytic and geometric natures of a domain.
The principal investigator plans to address this problem by
studying the d-bar-Neumann problem, invariant metrics, and
automorphism groups. More specifically, the principal investigator plans
to study compactness and eigenvalue spectrum of the d-bar-Neumann operator.
He will investigate necessary and sufficient conditions for
compactness of the d-bar-Neumann problem in geometric and potential
theoretic terms. He will also study eigenvalue spectrum of the
d-bar-Neumann problem by investigating, among other problems,
the several complex variables analog of Mark Kac's question: ``Can one
hear the shape of a drum?''. In addition, the principal investigator
plans to study invariant metrics, in particularly, the Bergman and
Kobayashi metrics. He will consider boundary behavior and the zero set of
the Bergman kernel function, as well as completeness of the Kobayashi
metric. Another problem to be studied is the theory of automorphism
groups and its relationship with the regularity of the d-bar-Neumann
problem.

Complex analysis is a key tool in many areas of sciences and engineering.
For example, the Laplace transform is essential in the study of
mechanical vibrations and electric circuits. The Laplace equation
has important applications to hydrodynamics, electrostatics,
and heat conduction. The problems under investigation in this project
are not only intrinsically interesting, but also have implications in
areas such as complex geometry, operator theory, potential theory,
mathematical physics, and quantum mechanics. Many tools to be used in
this project come from other branches of mathematics and sciences. Some
problems may even rely on computer programming. The investigator will
also contribute to the development of human resources by supervising a
graduate student.